The Application of Microbial Polymers to Enhance the Strength of the Soil Matrix

The objective of this research is to employ polymer-producing bacteria under an in-situ environment to a soil of inferior strength so that the biopolymers released can serve as a binder in soil particles to enhance the soil strength. The goal is to provide a cost-effective, environmentally-acceptable, in-place method to increase the strength of the soil matrix. It could also be possible that this technology can be extended to minimize risks associated with land subsidence due to fossil energy exploitation.